Steric-Stereoregular Polymers and Optically Active Helical Polymers/Achiral Reagent Complexes

The first objective of this work is to develop regenerable polymeric reagents for asymmetric reductions. The reagents will be complexes of optically active (chiral) helical polymers and borane. These polymers are conveniently synthesized by living anionic polymerization techniques using chiral initiators. An example of such an optically active polymer is poly (phenyl-2-pyridyl-o- tolylmethylmethacrylate). The presence of the 2-pyridyl groups in the polymer should allow for the preparation of the optically active polymer/borane complexes similar to poly (2-vinylpyridine)/borane complexes. The optically active reducing reagents will be used to reduce prochiral carbonyl functionalities. The second objective of the project is to synthesize a class of isotactic polymers which will exhibit specific secondary structures i.e. helix. This goal will be accomplished by first developing an understanding of the relationship between the structure of the monomer and the tendency to isotactic specific polymerization. The starting point of this project will be the synthesis and stereochemical characterization of poly (4-vinylquinoline) and poly (2-vinylnaphthalene). It is expected that such isotactic polymers with specific secondary structures or "steric-stereoregular" polymers will have potential applications in molecular biology, synthetic enzymes and regenerable asymmetric reagents.//